The Physics of Medical Technology: Science every patient wants to know

9354422 Amador The proposed curricular development project, "The Physics of Medical Technologies" addresses two serious concerns: the scientific education of college students not majoring in the natural sciences, and the enrichment of standard freshman physics laboratories. The interdisciplinary field of medical physics offers an exciting opportunity to create general audience courses which teach a great deal of basic physics in the context of learning how sophisticated medical instrumentation works. Importantly, the physics is limited in scope to relatively few topics, but these can be explored in depth. For example, geometrical optics plays a role in the understanding of fiber optic scopes, laser surgery, and ultrasound, while the concept of energy occupies a central place in the discussion of both laser surgery and radiation therapy. The main outcome of this project would be curricular materials for dissemination: a complete set of lecture notes, written at the appropriate level for a general audience course, supporting materials such as sample problems and demonstrations, and five original discovery-oriented laboratories which blend the essential science with medical applications. The latter will be appropriate for either a general audience course or for introducing topical applications into standard freshman physics. All three components, lecture notes, problems, and labs, have been designed to emphasize conceptual learning in conjunction with core quantitative techniques, such as estimation, modeling of data, and engineering design concerns. A detailed evaluation plan involving feedback from three off-site peers and a graduate assistant will assist in refining these course materials before they are advertised through mailings and journal articles. By encouraging instructors interested in teaching such a course and providing them with material help, the project will have an impact beyond its immediate student audience.